Phenomenology for High-Energy Heavy-Ion Collisions

Recent experiments at the Michigan State cyclotron, the SPS at CERN, and future experiments at RHIC at Brookhaven National Laboratory promise to create conditions where enough heat is supplied to dissolve nuclear matter into constituent protons and neutrons at cyclotron energies, and to vaporize the matter into constituent quarks and gluons at the large facilities. At these higher energies, the structure of the vacuum itself should actually melt for a brief instant throughout the nuclear volume. Since these collisions result in the emission of thousands of subatomic particles from a single event, the promise of various experimental observables and signals depends crucially on experimental details regarding the geometry, acceptance and resolution of the detectors. By collaborating closely with experimental groups and by carefully modeling the collisions and the experimental response, we hope to resolve several outstanding questions regarding the nature of these fundamental phase transitions.